ENGINEERING RESEARCH EQUIPMENT: Development of LP/REMPI Diagnostics for Combustion Kinetics

This proposal is for funds to purchase a Time-of Flight (TOF) Mass Spectrometer system and to upgrade an existing Nd:YAG laser system. The equipment will be used in conjunction with a planned fast-flow reactor/Resonance Enhanced Multiphoton Ionization (REMPI)-TOF facility in support of several research projects related to the incineration of hazardous wastes.